Money: A Quantitative General Equilibrium Approach

A long standing issue of great importance in economics is how and why money inluences economic activity. There is a fairly good understanding of what happens when the Federal Reserve Board changes its policy by injecting more money into the economy. However, what is not well understood is just how and why this happens. The models typically used to explain the monetary transmission mechanism are generally thought to be flawed since they rely on the assumption that individuals are irrational; either in the way they form expectations about the future or in the way that they react to profit opportunities in the labor market. The aim of this research is to explain the monetary transmission mechanism without having to assume irrational behavior on the part of economic agents. A class of general equilibrium models are developed in which agent's beliefs about the future are capable of influencing what happens in the present. This research is important because it will shed light on just how expectations are influenced by actions of the FED, and, thus, provide a better understanding of the mechanism by which monetary policy effects overall economic activity.